Micromagnetic Surface Studies of Materials for NDE

This project is to study magnetic NDE methods for surfaces. The research will be conducted in conjunction with the Fraunhofer Institute at the Universitat des Saarlandes. A main component of the research will be the study of NDE magnetic effects related to the surface residual stresses such as are developed during shot peening.